The Effects of Base-Level Change on Fluvial Processes, Sedimentation, and Erosion Control

The project will address the controversy surrounding the impact of base level change on channel response, on the magnitude of the upstream influence, on the nature of valley-filled deposits associated with base-level rise, and on the nature and distribution of sedimentary deposits on shelves of different slopes, by a series of experimental studies in large flumes and in a rainfall-erosion facility. The objectives are to determine: a) the effect of base- level change on meandering and braided streams; b) the effect of the rate and magnitude of base-level change; c) the effect of subaqueous slopes on channel response; d) for different magnitudes of base-level changes, the upstream progression of erosion and deposition for valleys of different slopes and widths; and e) the long-term effect of grade-control structures on valley morphology, channel stability, and sediment yield. The results will be applied to erosion control measures that can reduce sediment yields and stabilize actively eroding steeplands for long periods of time.